Enzymology and Mechanism of Reaction of Selected Enzymes of Terpene Biosynthesis

This grant proposal enables four research groups of diverse research disciplines to study a selected group of enzymes of polyprenol biosynthesis. The different groups will contribute skills in enzymology, microbial/genetics, synthetic organic chemistry, and physical organic chemistry. Most of the enzymes for study utilize allylic and homoallylic diphosphate esters as substrates. They are isopentenyl diphosphate isomerase, two prenyltransferases (farnesyl and geransylgeranyl diphosphate synthetases), two enzymes that catalyze "head-to-head" condensation of allylic pyrophosphates (squalene and phytoene synthetases), and finally, 2,3-oxidosqualene cyclase. These enzymes will be purified to homogeneity from Saccharomyes or Phycomyces. When necessary, genetic amplification of their expression will be used to obtain enough protein for study. Photolabile substrate analogs will be prepared so that their catalytic sites can be identified and sequenced. Hopefully, entire proteins will be sequenced so that a comparison of these enzymes that catalyze such chemically similar reactions can be compared. In addition, comparative studies of the mechanism of the reactions will be undertaken. %%% Many biologically important polymers are made from a building block unit of five carbons. These include natural rubber, the visual pigments, the colors and fragrances of flowers and fruits, light harvesting plant pigments, and pheromones and defensive substances. Although the pathways of synthesis of these compounds are of crucial biological and economic significance, very few details of the enzymes carrying them out are known. This project seeks to fill important information gaps and provide needed data on these important pathways.***//